Computer Science, Engineering, and Mathematics Scholarships Program

The Florida Agricultural and Mechanical University proposes to establish the NSF Computer Science, Engineering, Engineering Technology and Mathematics Scholarship (CSEMS) Program to provide forty talented low income undergraduate students, who are majoring in these disciplines, with scholarships in the amount of $2,500 per year for the last two years of their degree program.

CSEMS Scholars will be selected in the Spring 2000 semester and commence program activities in Fall 2000. Program activities will include
1. faculty advising/mentoring.
2. technical professional development seminar series
3. Summer experiential internships in industrial or governmental setting.
4. graduate school/career counseling and placement.
The program enhancement activities and scholarship funds are expected to enable the CSEMS Scholars to complete their B.S. degree requirements within the two year time-frame allotted for funding.